Investigation of Creep and Collaspe Mechanisms in Soil

This grant is for soil testing equipment to allow two young faculty members to begin a research program in geotechnical engineering at a university that has not previously had an active program in geotechnical engineering, but which is located in a major metropolitan area (Miami). The equipment is specifically to allow performance of tests to measure the creep and collapse characteristics of both natural and compacted soils.